Insitu Measurements of Polar Stratospheric Clouds, Condensation Nuclei, and Ozone in the Springtime Antarctic Stratosphere

It is the purpose of this project to continue to make balloon borne measurements of ozone, polar stratospheric cloud (PSC) particles and condensation nuclei in the stratosphere above McMurdo, Antarctica during the austral springtime. This work is required to further understanding of the annual Antarctic ozone hole. It is known that the principal cause of the ozone depletion is chlorine, and that the PSCs play a major role in the chemistry, freeing the elemental chlorine from the reservoir gases, hydrochloric acid and chlorine nitrate, so that it is available for the photocatalytic destruction of the ozone at the time of sunrise. Very little is presently known about the details of the formation and physical state of the particles in the PSCs, and it is expected that this project will continue to improve the state of knowledge of this important subject.